Industry/University Cooperative Research Center for Sensor and Actuators

9418534 White The University of California, Berkeley Industry/University Cooperative Research Center for Sensors and Actuators is being funded for three years by a "Self-Sufficient Partnership for Research" Program award through the Industry/University Cooperative Research Centers Program. Additional funding is provided for an evaluator for three years to study the industry/university interaction occurring in the Center. Funding is also being provided for an African-American undergraduate to perform a one year study. The study, which augments the Center's research program, will focus on the maximum quality factor attainable by resonators constructed from polycrystalline silicon which are measurable only under vacuum. The researchers are internationally recognized scientists in this field and are well qualified to perform the Center's research projects. This Center is being cosponsored by Dr. Deborah Crawford, Solid State and Microstructure Program. The Program Manager recommends the University of California, Berkeley be awarded a total of $163,000 for one year: $158,000 for the first year of a three-year continuing award (this includes $100,00 cost sharing from the Solid State and Microstructure Program and $8,000 for an evaluator); and $5,000 for one year with funds provided by the Women, Minorities, and Disabled Engineering Research Assistants Program. Funding for year two through three are recommended at the level of $108,000 per year ($100,000 per year from the Solid State and Microstructure Program and $8,000 per year for the evaluator.